Reaction Dynamics of Small Cyclic Hydrocarbons

This grant from the Organic Dynamics Program supports the research of Professor David Lewis at Colgate University. The results of this research will provide new understanding to the mechanism of the thermal reactions of small-ring hydrocarbons. The shock tube method will allow high reaction temperatures to be reached (1100 K) without the complication of reaction on the reactor wall. New and sophisticated spectroscopic methods will be used to detect intermediates in these reactions, and from this analysis an insight to the mechanism of the reaction can be reached. The isomerization and fragmentation reactions of small-ring hydrocarbons will be studied by shock tube and static reactor techniques. Mechanistic details of these reactions will be probed with state of the art spectroscopic techniques, namely, high resolution IR absorption spectroscopy, tunable diode laser methods, and vibrational circular dichroism. Sophisticated deuterium and carbon-13 labeling experiments will be employed to determine the course of reaction. From these experiments it will be possible to determine if these reactions proceed in a concerted or stepwise manner, and if orbital symmetry rules are obeyed.